SBIR Phase II: Chemical Mechanical Planarization pad with controlled micro features for sub 7nm semiconductor technology

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is to help semiconductor chipmakers overcome manufacturing challenges in Chemical Mechanical Planarization/Polishing (CMP) processes. CMP processes enable cutting-edge manufacturing; currently chipmakers often face scaling difficulties as the size of the smallest features continues to decrease, increasing the impact of CMP imperfections and resulting in higher defect rates. The proposed polishing process enables chip fabricators to reduce these CMP imperfections by 50% and improve performance, while reducing costs and increasing process throughput.

This Small Business Innovation Research (SBIR) Phase II project will improve CMP processes with innovative polishing pads. Conventional polishing pads have randomly distributed micropores inside of the pads and typically generate around 1% real contact area between the pad asperities and wafer during polishing. This leads to unwanted polishing results, such as dishing/erosion and scratch defects on chip patterns due to the stress concentration on asperities. Conventional pads require a pad conditioning process to regenerate the asperities on the pad surface. The polishing processes developed under this project use microfabrication technologies to control micro-features on the pad surface. Therefore, the contact area between the pad and wafer is customizable and controllable up to 30%. This will improve the polishing performance precision and consistency, leading to fewer defects. As the micro-features on the soft sub-pad are independent, the conformity of the pad increases and the pressure on the wafer is evenly distributed across the wafer surface. This will significantly improve the chip-level planarization and wafer-level uniformity, and reduce the pad wear. As a result, the pad conditioning process can be minimized or even eliminated from the CMP process.